A Real-Time Holographic Printer for Computer-Assisted Three-Dimensional Modeling of Macromolecules

This is a SBIR Phase project in the topic area of biological instrumentation. Physical Optics Corp will develop a holographic printer which produces distortion-free three dimensional hard copies. This product will contribute significantly to 3D image analysis of biological objects in biomedical research. In addition, it will have applications in publishing business.